Microlocal Analysis and Nonlinear Waves

ABSTRACT

A major goal of this proposal is to understand the role of fixed and
free boundaries in rigorous nonlinear geometric optics. The central
importance of boundaries is indicated, for example, by the fact that
multidimensional shock and vortex sheet problems can be formulated as
nonlinear hyperbolic free boundary problems. The author proposes to
continue his work on geometric optics for quasilinear boundary problems
and multidimensional strong shocks, and to extend it to weak shocks; to
study the evolution of boundary layers in quasilinear fixed and free
boundary problems, especially the role of glancing boundary layers in a
new mechanism for shock instability; to construct Rayleigh waves in
nonlinear elasticity as propagating elliptic boundary layers and to
investigate their nonlinear (resonant) interactions with other waves.

The construction of formal, asymptotic solutions to nonlinear PDEs
(nonlinear geometric optics) has long been an important tool of applied
mathematics. Formal solutions yield qualititive information about many
complex wave phenomena such as resonance, shocks, Mach stems, and vortex
sheets, and can be used to predict and explain the results of physical or
numerical experiments. An important task for pure mathematicians is to
rigorously justify such expansions, that is, to show that they are close
to genuine exact solutions. Rigorous analysis also leads to the discovery
of unexpected phenomena, such as new blow-up mechanisms, for example.